Program Analysis for Reliable Numerical Software

CCF-0702622
Program Analysis for Reliable Numerical Software
Zhendong Su

Many software systems involve numerical computation, and numerical errors in these systems can be disastrous. Well-known examples include the loss of the Mars Climate Orbiter (due to a misuse of measurement units) and the explosion of the Ariane 5 rocket (due to an overflow). Studies show that such errors often occur, even in well-tested code, because it is difficult to test numerical software and few static tools exist to help detect such kinds of errors.

This project aims at developing practical program analysis techniques and tools to help avoid common classes of numerical errors. It focuses on three main aspects of the problem: (1) automatic dimensional analysis and unit checking, (2) static detection of uncaught exceptions such as overflows and underflows, and (3) static estimation of error propagation and numerical stability. The general approach is to cast these problems as constraint-based program analyses by modeling the formal semantics of the IEEE floating-point standards and designing approximate abstract semantics with appropriate constraint formalisms. For wide dissemination of the research results, analysis tools developed in the project will be distributed to the public domain for use in teaching, research, and experimental evaluation.